CEDAR: Mid-Latitude Long-Term Mesospheric and Lower Thermospheric Dynamics Measurements from a Mid-Latitude Site at Peach Mountain, Michigan

This proposal requests continued CEDAR support to operate and analyze data from the set of optical instruments at Peach Mountain Observatory (PMO), Michigan. The program will address the following objectives: 1) the continued collection of mesospheric and lower thermospheric geophysical data (neutral winds and temperatures for airglow layers corresponding to hydroxyl and atomic oxygen) to establish a long-term, mid-latitude climatology; 2) the coordination and operation of experiments through the comparison of data sets acquired simultaneously by the FPI, ASI, and FTS; 3) the training of graduate student in the operation of the optical experiments plus the interpretation of the data sets; 4) the submission of the collected geophysical data sets to the CEDAR NCAR data base; 5) the analysis and publication of results. In particular, data from the PMO will be used to characterize gravity-wave and tidal behavior in the mesosphere and the lower thermosphere in an attempt to determine the significance of the background neutral-wind bulk flow in the interpretation of gravity- wave fluctuations.